Quantum Field Theories on Algebraic Curves and Applications

DMS-0204628 - Leon Takhtajan
Abstract

The proposal is devoted to the study of quantum field theories on
algebraic curves from complex analytic and algebraic points of view.
String theory is the unifying theme of the complex-analytic part of
the project. The main goals of this part are: 1) geometric formulation
of two-dimensional quantum Toda theories associated with simple Lie
algebras; 2) Fermi-Bose correspondence for compact Riemann surfaces and
closed smooth Jordan curves; 3) proof of general Kleinian reciprocity on
deformation spaces; 4) construction of the universal Weil-Petersson
potential for the universal Teichmuller space; 5) curvature properties of
the new Kahler metric on moduli spaces of punctured Riemann surfaces; 6)
explicit form of factorization formula for determinants of Laplace
operators acting on higher order differentials; 7) Faddeev-Popov ghosts
for string field theory of open strings. Symmetries and Ward identities
for correlation functions are guiding principles of the algebraic part
of the project. The immediate and long term goals of this part are: 1)
proof of adelic Fermi-Bose correspondence for vertex operators, complete
construction of quantum field theory of multiplicative bosons and proof
of A. Weil's reciprocity law; 2) construction of quantum field theories
on algebraic curves in non-zero characteristic with Artin-Schreier and
Kummer theories as main examples, proof of Artin's reciprocity law using
quantum field-theoretical methods; 3) adelic formulation of the WZW
theory on algebraic curves in characteristic zero.

In mathematical development a pivotal role is played by ideas from
physics, originated in the study of the surrounding world. The last twenty
five years have been characterized by dramatic success in application
of quantum fields and strings to different areas of mathematics. The idea
is to probe mathematical objects by quantum theories and to measure their
response in order to get new information about the various mathematical
properties of these objects. Usually the output is encoded in terms of
partition function and correlation functions of physical theory, and the
problem is to decode it back in mathematical terms. The goals of this
proposal are the following: 1) to extend further quantum-theoretic method
for the study of complex analytic properties of surfaces in two
dimensions and their families; 2) to develop a new systematic
quantum-theoretic approach for arithmetic surfaces and algebraic number
fields (like the usual field of rational numbers). Fundamental properties
of these objects are discrete and it is only natural to study them at a
microscopic scale using quantum theory. In particular, many classical
mathematical results about fields of algebraic functions and algebraic
numbers, known as reciprocity laws, can be interpreted as conservation
laws (like conservation of energy) in quantum theory. The main goal of
the algebraic part of the project is to develop a new approach based on
quantum theory towards fundamental laws that are satisfied by the very
basic mathematical objects: algebraic numbers - solutions of algebraic
equations with coefficients being rational numbers, and algebraic
functions - solutions of algebraic equations with coefficients being
rational functions. Realization of the goals of the proposal will
contribute to the fundamental interface between mathematics and physics.